Development of Multipolar Zero-Field NMR Spectroscopy ethods

This award is the starter grant increment of Dr. Chmelka's Postdoctoral Fellowship in Chemistry. The work will develop the methodology of multipolar zero-field NMR through instrumental improvements. Sample shuttling times will be reduced so as to make it possible to study systems with shorter spin-lattice relaxation times. The range of accessible dipolar couplings will be extended to 50 kHz so that solid organic compounds may be studied. The new instrumentaion will be applied to the study of molecular clusters in partially ordered systems. %%% Nuclear magnetic resonance spectroscopy, NMR, is an important method for determining molecular structure. The NMR approach will be developed to study solid systems of importance to understanding catalysis in zeolites. These are systems of great commercial importance.